Collaborative Research: EPIIC: Scaling Partnerships and External Collaborations through Industry-Aligned Learning (SPECIAL)

The Scaling Partnerships and External Collaborations through Industry-Aligned Learning (SPECIAL) project will enhance the capacity of five collaborating institutions for developing and maintaining workforce development-focused external partnerships that span a range of emerging technologies. EPIIC funding will be used to address a range of capacity-building needs. These include but are not limited to on- and off-campus physical spaces to house events and initiatives that help strengthen and scale external partnerships, and technical assets that improve partnership-building processes and procedures. Additionally, EPIIC funding will support cohort-wide activities that foster collaboration between member institutions as well as sustainable industry-academic partnerships. These activities will include annual retreats that provide opportunities for knowledge sharing as well as jointly sponsored industry-focused special events that take place in an institution’s home region.

This project will advance the knowledge and practice of how emerging research institutions which span both community colleges and comprehensive universities can effectively engage and collaborate to enhance key technology sectors within their regional economies to promote economic growth and opportunity, global STEM competitiveness, and national security. The cohort anticipates significant enhancements across all levels of partnership engagement and industry relations. Institutional evaluation plans will provide opportunities for real-time adjustments to be made during the award period. Key metrics will include the number of external partners, number of collaborative projects, number of participants, number of events, and participant survey feedback. At the conclusion of the EPIIC program the participating institutions will increase competencies, capital, and confidence needed to fully participate in the regional innovation economy.